Doctoral Dissertation Research in Political Science: Public and Private Regulatory Interactions: EU Responses to Private Environmental Regulation

This dissertation project aims to understand how different regulatory institutions interact. It
will examine the following research question: "Why has the European Union (EU) responded to
existing private environmental regulation in different issue areas in diverse regulatory ways?"
Private environmental regulation in this project refers to voluntary certification and eco-labeling
programs developed by non-state actors (industry organizations; firms; non-governmental
organizations) to induce corporate environmentally friendly behavior. By examining EU
responses to private regulation in four issue areas (organic agriculture, biofuels, fisheries, and
fair trade) this research will explain why in some cases the EU has responded strongly by
developing its own public certification program, while in other cases it has decided not to
intervene at all, or only in a very limited way.

By examining the historical co-evolution of public policy and private regulation in these issue
areas, and by analyzing the decision-making processes of the EU's regulatory responses, this
study will identify the causal mechanisms and processes that can explain the observed
variation. Through in-depth, semi-structured interviews I will gather original data from EU
officials and decision-makers, EU-level and national interest and advocacy groups,
representatives from private environmental regulatory programs, issue experts and academics.
These data will be complemented with data on the decision-making processes, which will be
gathered during desk research and from notes and documents obtained from interviewees.

This dissertation's main intellectual contribution is its focus on an unexplored dependent
variable, namely the regulatory responses of public authorities to private environmental
regulation. This study will contribute to the nascent research on the interaction between public
and private regulation and on the role of non-state actors in politics more broadly. Even though
this dissertation will be limited to environmental issue areas, it is expected that the conclusions
are generalizable to other issue areas as well. It is not expected, in other words, that the
particular characteristics of the environmental issues determine public responses to private
regulation, but rather that more general factors, such as the specific features of private
regulatory programs and corporate involvement in these programs, explain public authorities'
responses.

Private actors are currently using certification and labeling programs to address environmental
and social problems in an increasingly diverse range of issue areas. This research will contribute
to generating policy relevant knowledge on how public authorities can attain a better
integration of public and private policy instruments. Furthermore, understanding the way
public policy interacts with private regulatory programs will generate useful information for
initiators of such programs regarding their design and functioning.